Microcomputer-Based Introductory Physics Laboratories

The majority of the students in introductory physics courses experience serious conceptual difficulties in relating time- dependent kinematic and dynamic observables. The current literature suggests that (a) this problem is not unique to one institution, and (b) that microcomputer based laboratories (MBL's) can be used effectively to develop higher order cognitive skills. The most successful documented approach uses position, velocity, and force sensors interfaced with a microcomputer equipped with the software to perform real-time analysis. The project uses hardware and software currently available on the market, and standard laboratory investigations are adapted to a cognitive science approach to instruction. The same microcomputer is being used as measuring instrument, analytical tool, graphic display unit, repository of assignment write-ups, and tutorial aid. Pedagogical effectiveness is assessed through a standard hypothesis-testing procedure. Results are being disseminated through standard publication channels, workshops for local high school physics instructors, and ultimately summer student workshops.